The Fond du Lac Tribal Technology and Science Infrastructure Project

This project was developed as a result of a technology and science planning process that
Fond du Lac Tribal and Community College (FDLTCC) initiated in 2000 and is still
continuing. This planning effort involved a large number of college and community
stakeholder groups and provided both the underlying concepts for this proposal as well as the
outline for specific curriculum programs and hardware/software infrastructure needs.
The project proposed has several interrelated elements. High performance computing assets,
including Internet2 hookup, cluster installation, and visualization panels, are put into place to
support both curriculum and research agendas. The research agenda is centered in ongoing
research efforts at the college in environmental science, soil mapping, computational science,
and information technology (IT). The research effort is designed to provide students with
experience in research, experience with the collaborative research environment, and
experimential activities related to what they are studying. The grant also proposes to build a
partnership with the University of Minnesota's Laboratory for Computational Science and
Engineering, both to provide help with constructing the high performance infrastructure, as
well as a research agenda that will involve students in computational science, physics, and
other SMET-related curriculum areas. Other collaborative efforts will be implemented with
current partners involved in FDLTCC research projects.

At the proposed project's heart are curriculum development and implementation activities
designed to not only build on the enhanced research projects, but to also initiate new SMET
degrees. Research with FDLTCC's target student population has indicated that these degrees
and a one-year certificate program will increase the number of Native American students
majoring in SMET-related programs. These degrees are all designed to launch a new
curriculum track design, which provides a core of Information Technology courses that
students can use to build either baccalaureate or associate degrees in a number of different
disciplines.

The degrees and certificate initiated through the project will include: A GIS/GPS certificate
which can be earned in conjunction with the environmental science, computer science, and
law enforcement associate degrees; a baccalaureate in computer science with the IT core; an
associate degree in E-Crime and Computer Security that can be earned with the IT core, the
GIS/GPS certificate, and the college's current Minnesota Transfer or Law Enforcement
associate degrees in order to complete the requirements for a baccalaureate. The new IT core
will also be available to baccalaureate students in Elementary Education at FDLTCC. By the
end of the grant, enrollment in these curriculum areas will support continuation of each
program based on the timetable described in the grant.

The last two elements of the grant include the plan to develop an associate degree online for
students located at FDLTCC's Augsburg Offsite program that serves the Native American
community in St. Paul/Minneapolis. This effort will also use the high performance
computing resources built through the project. SMET related faculty and staff development
activities are also included designed to increase IT sophistication at FDLTCC as well as to
increase the number of MS and Ph.D.-qualified faculty in SMET-related areas.